Doctoral Dissertation in Decision, Risk, and Management Science

This is a doctoral dissertation award. The dissertation involves an empirical investigation of the relationship between forms of organizational control and the occurrence of strategic innovation in a cross section of firms in the drug industry. The dissertation develops a theoretical model of the process by which strategic intentions are translated into strategic actions through control mechanisms. The study involves the analysis of archival data, surveys, telephone interviews and two in depth case studies which examine how organizations pursue new competitive strategy involving the development of radically new products or involving the modification of existing